Development of Table Top Experimental System for Time Resolved Femtosecond to Nanosecond X-ray Diffraction and EXAFS in Solids and Liquids

With support from the Chemistry Research Instrumentation and Facilities (CRIF) and Major Research Instrumentation (MRI) Programs, Peter M. Rentzepis of the University of California in Irvine will develop a table top experimental system for time-resolved femtosecond to nanosecond X-ray Diffraction and EXAFS in solids and liquids. Such an instrument will combine high repetition rate with a high X-ray flux, two ingredients especially needed for high quality EXAFS spectra. The investigator will carry out a number of studies once the instrument is up and running, such as grazing incidence experiments on thin (sub-nanometer) films, which will yield important information on the thermal transport properties of such films, and solution phase EXAFS.

The application of time-resolved X-rays is a frontier in spectroscopy, and could have great benefits for the chemical enterprise. This work will lead to a new generation of short pulse X-rays with significant impact in science areas that use time-resolved X-ray structure analysis. This is a new direction in X-ray structure analysis insofar as it will provide dynamical information. The development of this user-friendly spectrometer will allow scientists in the region to perform research projects in many different disciplines, including engineering, materials science, chemistry and biology.